Topology and the Fundamental Group

9803868
Cannon
The most important invariant of three-dimensional
spaces is the fundamental group. The investigator and his
coworkers are studying the fundamental group of three-
dimensional manifolds asymptotically via the recursive
patterns at infinity defined by those groups. This approach
transfers difficult problems about three-dimensional spaces
to difficult problems about recursive tiling patterns in
the two-dimensional sphere at infinity. The patterns
obtained are very attractive aesthetically and seem to
supply deep connections among three-manifold theory, the
geometry of three-manifolds, geometric and combinatorial
group theory, circle packing, classical complex variable
theory, Teichmueller space theory, and the theory of Kleinian
and Fuchsian groups, with potential connections as well to
the theories of iterated rational maps, tiling theory,
Blaschke products, Grothendieck's dessins d'enfants, etc.
The initial theory was developed with essentially only one
aim in mind, namely to prove the conjecture that a discrete
group is Kleinian if and only if it is negatively curved
in the large (in the sense of Gromov) and has the two-dimensional
sphere as its space at infinity. An affirmative solution to this
problem would fill an important slot in Thurston's program
to show that all three-manifolds admit a geometric structure.
The theory of recursive tilings of the plane and two-sphere
is very rich and rewarding and is likely to have applications
well beyond its intended target.
Discrete group theory can be used to model physical motion,
geometric symmetries, and biological cell growth. The generic
discrete group is infinite and negatively curved in the
large (Gromov and Olshanskii) and has a recursive self-
similarity structure at infinity (Cannon). One might
alternatively say that the generic group casts fractal
shadows at infinity. The investigator and his coworkers
are studying this fractal structure at infinity by using
the theory of conformal mappings to optimize the geometric
shape of these shadows. The results have application
to the study of discrete groups, three-dimensional spaces,
complex variables, computational group theory, and, potentially,
to the theory of biological cell growth.
***